Enhancing and Assessing Spatial Cognition through Computational Craftwork

When professional mathematicians and scientists discuss the nature and
origins of their own creativity, they often mention the central role
played by visual and spatial thinking. But despite the apparent importance
of visual/spatial cognition in mathematics and science education, there is
still relatively little research aimed at understanding, enhancing, and
assessing spatial reasoning in math and science students. Even more, there
are few efforts that seek to blend novel computational media with the
sorts of spatially and mathematically rich hands-on crafting activities
that influenced and motivated earlier generations of scientists. We
believe that progress can be made on both these fronts--on both basic
cognitive research and pedagogical development--by an effort at
integration. That is: by designing playful, creative, and technologically
sophisticated educational materials for exercising and enhancing spatial
cognition, we can use those materials as the means to explore and
understand fundamental issues in spatial cognition as well.

In the course of this project, then, we plan to:

* Characterize the nature of spatial expertise in the understanding of
three-dimensional forms, while creating flexible assessment techniques to
measure development of that expertise;

* Devise a practical spatial curriculum of materials designed to enhance
and exercise spatial cognition. This curriculum will be based on a
combination of both hands-on work and creative computational papercrafting
activities.

* Extend our current software research environments (HyperGami and
JavaGami) to incorporate online spatial advisors that assist students in
reflecting upon, understanding, playing with, and interpreting
three-dimensional polyhedral forms; and

* Create new software to explore both traditional and novel realms of
mathematical papercrafting, such as pop-ups, flexagons, anamorphic art,
and surface models. In exploring these areas, we seek to expand the
landscape of traditional mathematical papercrafts by exploiting the
creative potential of computational media.